Research Initiation Award: Implementing a Programming Tool for Massively Parallel Computing

9308662 Eshaghian A novel parallel programming tool called Cluster-M will be implemented. Cluster-M provides an environment for efficiently designing highly parallel machine independent software. Using this tool a single parallel program can be ported, mapped and executed on various multiprocessor systems, therefore, significantly reducing the cost of software development. Also designing parallel algorithms using Cluster-M is simple and need not be done by an expert. The main components of this paradigm are the Cluster-M specifications and representations. Cluster-M specification is a highly parallel program which specifies the communication and computation requirements of a solution to a given problem by exploiting and emphasizing all the concurrent tasks at every step of an algorithm. On the other hand, Cluster-M representation represents the processor interconnection topology of the underlying architectures. The specification can be mapped onto different Cluster-M representations, using the mapping methodologies, which are proposed to be implemented. ***